REU Site Program in Computer Vision and Image Processing

This REU site project allows eight undergraduate students to participate
in a ten-week summer program at Computer Science Department of Utah
State University. This summer program focuses on several hands-on
stimulating research projects including face recognition, eye tracking,
digital watermarking, image compression, and content based image
retrieval. These projects will address the broad spectrums and the
challenging issues in the field of computer vision and image processing
(CVIP) and will emphasize on several CVIP techniques and their important
utilities in some interesting and crucial applications. The REU
participants will be presented with a broad range of components in these
research topics so that each student will be able to choose a component
of a project rather than have one assigned. This research will ensure at
least four of the eight participants are underrepresented students and
ensure at least four students are from other institutions, especially
those institutions where research programs are limited. This active and
regional recruitment plan will especially help underrepresented students
and the students who are limited exposed to research to be acquainted
with interesting research projects and gain confidence in pursuing their
degrees, seeking industrial technology related jobs, and continuing
pursuing an advanced degree in graduate schools.